Travel Grant to Attend the EUROTRIB '85 Tribiology Conference in Lyon, France, September 8-12, 1985

This award provides travel support for a senior investigator to participate in a major international meeting, the EUROTRIB '85 Tribology Conference in Lyon, France, sponsored by the International Tribology Council, the Societe Francais de Tribologie, and the Ecole Centrale de Lyon. He is presenting a paper and participating in discussions.